SGER: Emergency Analyses and Reporting for the Wales Archaeology Project Collections and Data

This is a Small Grant for Exploratory Research to assist in the expedited analysis of and the creation of a long term storage plan for the archaeological artifacts and associated data collected from the Village of Wales in 2003-2005. This project will ensure the proper disposition of these materials a long term storage plan and the ultimate repatriation of the artifacts to their owner, the Village of Wales. Without this funding the very important Wales collection and data are in limbo and at risk.